Extreme Flood-Producing Storms: Case Studies Using the WSR-88D Radar Network

9706259 Smith Hydrologic and hydrometeorolgical analyses will be carried out for 12 storms and their associated floods. Analyses will be modeled after studies of the Rapidan Storm flooding of June 27, 1995 along the east slope of the Virginia Blue Ridge (see Smith et al., Catastrophic rainfall from an upslope thunderstorm in the central Appalachians, Water Resources Research, 1996). In particular, hydrometeorological analyses for each event will be based on volume scan reflectivity and Doppler observations from the network of WSR-88D (Weather Surveillance Radar-1988 Doppler) radars. For each event, rain gage and streamflow data sets will be compiled and used, together with radar and conventional meteorological observations, to construct atmospheric and land surface water budgets. Lagrangian analyses of storm structure, motion and evolution will also be carried out for each of the 12 storms. These analyses will be used to examine the dominant storm-scale properties for heavy rain-fall production. Drainage basin characteristics for the regions affected by extreme flooding exhibit striking contrasts for the events to be studied, ranging from the low-gradient environment of southeastern Texas, to the high-gradient central Appalachian region, to heavily urbanized catchments. Events include the Dallas Hailstorm, which resulted in 16 flash flood deaths during a period of approximately 1 hour, Hurricane Fran, which produced 500 year magnitude flood peaks in high-gradient basins of the central Appalachians, and the southeastern Texas storms of October 1994 that produced catastrophic flooding in Kickapoo Creek and downstream sections of the Trinity River basin.